Exploratory Studies in Materials for MEMS

9713385 Whitesides Funding is provided to support preliminary investigations of organic and inorganic materials functionality in MEMS structures. These materials promise significant impact in a variety of potential applications currently not realized by Si-based MEMS activities. ***